Open E-Market Technology for Algorithmic Intellectual Property

Abstract

This project seeks to develop an Internet accessible software broker to match scientists and engineers (or companies of such) offering algorithms, and/or their use, for a fee to algorithm users. To this end this project includes a theoretical investigation into scheduling, accounting and pricing related to electronic brokers for open electronic markets for algorithmic intellectual property. The technology for developing this broker would make use of the capabilities of the Internet, interoperable software such as JAVA and CORBA as well as new scheduler and accounting advances to be made in this research program.